Collaborative Research: NSF-BSF: RI: Approximate Bayesian Inference for Diffusion Posteriors

Generative artificial intelligence can create realistic text, images, video, and other media, but scientific uses require more than outputs that look convincing. A system used to sharpen a medical image, interpret satellite data, forecast weather, or explore new molecules must remain faithful to the measurements it is given, respect scientific constraints, and show when several answers are plausible. Today's generative models often fail to provide this kind of control and uncertainty quantification. For example, when asked to restore a blurry image, a model may change important content or return a single confident image even though many different clean images could match the same blurry measurement. This limitation is tolerable in casual use, but it can be harmful in settings where scientific evidence, health, safety, economic planning, or national security decisions depend on reliable information. This project develops methods that make generative models more trustworthy scientific tools. The work will help such models use observations more faithfully, represent uncertainty more accurately, and adapt to limited data in applications such as medical imaging, weather forecasting, satellite image analysis, biology, and chemistry. The project will also release software, models, and benchmarks for public use and will support education through summer schools and workshops, student research opportunities, industry engagement, and citizen science activities using community-contributed data.

Technically, this project develops approximate Bayesian inference methods for diffusion posteriors, the conditional distribution that results from combining a pretrained diffusion model with observed data or a task objective. First, the research will create posterior sampling methods that use unbiased gradient estimators, including REINFORCE and reparameterization estimators, together with conditional generative models that approximate the remaining denoising process in one step. This will allow scientists to specify new objectives without retraining a separate model for each task. Second, the research will cast diffusion guidance as a stochastic control problem and learn amortized control policies that steer diffusion models efficiently at inference time. These policies will be studied for image restoration, video generation, and sequential data assimilation, including weather and fluid dynamics settings with sparse or delayed observations. Third, the research will develop Bayesian adaptation methods for small datasets, including anomaly score guidance, functional priors on denoising functions, marginal likelihood optimization of guidance losses, and diffusion-based amortized clustering for discrete latent structure. Expected outcomes include algorithms, theory, open source software, and scientific benchmarks for calibrated posterior sampling, robust adaptation, and uncertainty quantification.